Elementary Particle Physics

This action provides funds for continued research in elementary particle physics by a group at the Santa Cruz Institute of Particle Physics, University of California, Santa Cruz. The group will construct and operate major portions of a Cerenkov Ring Imaging Detector for incorporation into the Large Detector (SLD) at the Stanford Linear Accelerator Center. This research will exploit the advances in instrumental techniques in such detectors made by this and other groups over the last three years. It will culminate in the full utilization of the Stanford Linear Accelerator Center linear collider's capabilities to explore the physics of the Zo particle and of other physical processes extant at these energies. In particular, this device adds to the SLD the capability to separate emerging particles by type (mass) over virtually the entire spectrum of energies expected. This in turn allows deeper analysis of the physics which dictated that such particles would result from electron-positron annihilation. It is believed that a modern detector without such capability would not be competitive in the physics of this energy range.